SCC-CIVIC-FA Track A: Resilient Arctic Innovations for Sustainable Communities in Extreme Environments (RAISE)

This project is focused on increasing resilience of North Slope Alaskan Arctic coastal communities threatened by increased coastal erosion, flooding, and ground subsidence as a result of environmental changes in the Arctic, changes that are threatening property and infrastructure and impacting food security and community wellbeing. The work uses ground- and drone-based data collection and site monitoring of permafrost changes as well as satellite remote sensing data to generate GIS- and web-based maps for quantitative risk assessment and hazard forecasting. The project’s impacts include approaches and tools that can be adopted by other coastal regions in Alaska and across the lower US 48 states. Impacts also include workforce development through participatory community data collection and analysis efforts in obtaining and processing drone images.

The work involves establishing ground- and drone-based monitoring of permafrost changes and combining that information with enhanced remote sensing and image processing. These data will be used to create high-resolution GIS- and web-based maps that have the capability of projecting future changes in the landscape that could impact zones of habitation and infrastructure installation. Web-based tools will be easy to understand by community and civic partners that would allow users to choose various “what-if” scenarios to inform decision-making for coastal developments as well as explore possible impacts of erosion. Data collection and input is designed to be straightforward for easy maintenance; and maps have high spatial resolution and fine temporal scale that should allow year-by-year projections of coastal risks in for up to, at least, the next 20 years.